Dynamic Modelling and Control of Wastewater Treatment Systems

The objective of this research is to develop an integrated dynamic model and computer control system for a typical wastewater treatment plant designed to take advantage of as much information as possible including predictions from fast-time computer simulations, the knowledge of expert operating engineers and plant operators, and information from both off-line analyses and on-line sensors. Computer simulations based on the model will be used to prepare plans for physical experiments to test the model and control system at pilot or full scale. The strategies will have the goal of minimizing operational costs while meeting requirements for the effluent wastewater and sludge produced. They will take into account interactions between the individual processes as well as those between the liquid and solids processing trains. The dynamic nature of wastewater collection systems, receiving bodies of water, and sludge transport and disposal will be considered in development of the strategy to be used in approaching engineering design of treatment plants and in their operation to meet control objectives.